Acquisition of a Variable Temperature Superconducting Magnetometer/Susceptometer (Materials Research)

The instrumentation requested is a Variable Temperature Magnetometer/Susceptometer manufactured by Quantum Design. Acquisition of the magnetometer is absolutely essential for the research programs of the principal investigators and will enhance the productivity of research programs currently supported by ONR, NSF (DMR), and DOE grants by providing critical capability currently not available at Rutgers University for variable temperature magnetic susceptibility measurements and other magnetic studies of various materials in the following areas of chemistry and physics: 1. Synthesis and characterization of high temperature superconducting copper oxides. 2. Synthesis and single crystal growth of quasi low- dimensional alkali metal molybdenum oxide bronzes and characterization of their structural, electronic transport and magnetic properties. 3. Synthesis and characterization of new three-dimensional network oxide materials, which are proposed for the development of solid electrolytes and cathode materials for use in solid state high energy density batteries. 4. Preparation and characterization of transition metal chalcogenides with quasi low dimensional properties. 5. Sol-gel synthesis of electronic materials. 6. Synthesis of new ternary crystalline and binary amorphous rare/earth-compounds with unstable valence states, and the study of their structural, electronic, magnetic and transport properties. 7. Studies of Spin-Crossover Complexes. 8. Synthesis of thiolate-bridged Fe(III)-Cu(II) dimers as possible models for cytochrome c oxidase and characterization of their structural, electronic and magnetic properties.